REU: Study of a Surface Acoustic Wave Microsensor for Gas Detection

This research is aimed at developing an improved understanding of surface acoustic wave (SAW) microsensors for gas detection. The potential performance of the proposed sensor is in the range of parts per billion to parts per trillion. The proposed sensor will use twin SAW delay lines, and it will measure gas concentration as a function of the frequency shift between the reference delay line and the delay line of the test sensor containing a selectively sorbent film. The interdisciplinary research effort will include development of the theory, design, fabrication, and testing of SAW devices, and the physics and chemistry of surfaces needed to realize the potential of this type of sensor.